Purchase of Instrumentation for Nanosecond Time-Resolved Infrared Measurements

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will enable the Department of Chemistry at Ohio State University to acquire instrumentation for nanosecond time-resolved infrared measurements. The instrumentation will be used to study a variety of chemical systems, including (a) important intermediates in the photophysics and photochemistry of organometallic compounds, nitrenes, and psoralens; (b) charge carrier relaxation in electroluminescent conducting polymers; (c) the structure and dynamics of electron transfer processes in artificial photosynthetic systems; and (d) the photocleavage of DNA by charge transfer states. The laser system is an extremely versatile spectrometer that can be used to accomplish numerous photophysical and photochemical studies. The faculty will be able to probe fundamental processes at a level of detail not previously attainable.